Isolation and Characterization of Sperm Acrosomal Process

At fertilization, sperm and egg membranes fuse to deliver the paternal genome into the interior of the egg, and the egg begins development. The molecular mechanisms by which the membranes fuse and the sperm activates the egg are not well understood. This project will test the hypothesis that the portion of the sperm membrane that first contacts the egg contains molecules that mediate membrane fusion and egg activation. In starfish, this portion of the membrane covers the acrosomal process (AP). The objectives of this project are to isolate starfish APs, and to identify proteins that are unique to the AP membrane and are therefore potential bearers of fusion or agonist activities. The membrane proteins will be characterized by polyacrylamide gel electrophoresis and by surface labeling. The ability of the isolated APs to activate and/or fuse with denuded eggs, and to fuse with phospholipid vesicles will be tested. %%% This work will serve as a foundation for efforts to identify and isolate the sperm molecules that first act on the egg, and will increase our knowledge of the general mechanisms of membrane fusion and signal transduction.